Integrated Accessible Microscopical Workstation for Students with Disabilities

Abstract

The goal of this project is to construct an integrated accessible microscopical
workstation that will allow students with disabilities to independently perform common
biological laboratory techniques, thereby enabling individuals to actively participate in
scientific experimentation and the opportunity to pursue a career in the SMET fields.
This multi-purpose workstation is to be used primarily by persons with mobility
impairments. All aspects of the integrated workstation will be operated from a central
computer interface, which will be used to automatically control and monitor external
peripheral devices so that biological experiments can be performed. Using a computer
as the user interface and central control of the accessible laboratory workstation is
ideal, because the personal computer can accommodate various disabilities using
different pointing devices and accessibility software utilities. Total keystroke control of
the integrated workstation will be emphasized.
The intent of this proposal is to develop an accessible laboratory workstation that will
allow students and investigators with mobility impairments to perform the majority of
microscopical and histological laboratory procedures, most notably in the biological
sciences, with minimal assistance and setup. The integrated microscopy workstation
will use software to control all features of operation, including an automated
microscope, motorized stage, bulk slide autoloader, and digital video camera. The
workstation will allow a student with a disability to independently load up to fifty
individual slides, focus, change objectives, filter wheels, illuminator and condensor, and
position the microscopy specimen translationally in X and Y directions and rotationally
using theta control - all controlled through a computer that will also capture images of
the histological tissues to be managed and analyzed for anatomical studies. Thus, the
only assistance the student with a disability requires is for someone to load the slides.
All other phases of microscopy and image analysis can be performed without further
assistance.
The accessible microscopy workstation will be evaluated both in a classroom setting
that performs typical undergraduate and post-graduate biological experimentation and
in research laboratory setting that performs sophisticated laboratory procedures. Ten
high school and college students with a range of mobility impairments will be assessed
in the first year by their ability to use a computer and their specific ergonomics relating
to the construction of the accessible workstation. In the second year the students will
be tested on their ability to use the workstation to accomplish a variety of laboratory
procedures. Educators will also be queried as to their capability of incorporating the
workstation into the classroom environment.
University and local high school educators and Special Education specialists and
statewide organizations, like the Council of Volunteers/Organizations for Hoosiers with
Disabilities (COVOH) and Assisting Technology through Awareness in Indiana
(ATTAIN), which advocate the use of assistive technologies for persons with disabilities,
will be utilized to disseminate findings and promote the use of the integrated microscopy
workstation.